CAREER: Provably Good Concurrency Platforms for Streaming Applications

Most of the today's computers are parallel machines. For example, multicore processors
on personal computers and cell phones, graphics processors, cloud
computers, and clusters all have more than one processing unit.
Many modern applications are data intensive; examples include digital signal processing, audio and video
processing, networking, scientific and biological computations.
Streaming is an increasingly popular paradigm for applications that process
large amounts of data in parallel. A streaming concurrency platform is responsible for
correctly and efficiently executing streaming applications on a given parallel machine.

The goal of this research is to design streaming concurrency platforms
that provide guarantees of forward progress and efficiency. This
research will fundamentally advance the technology by addressing
the following important questions:
(1) How to guarantee that applications will make forward progress (not
deadlock)?
(2) How to guarantee that the streaming applications will run efficiently
on modern parallel machines with deep and complex memory hierarchies?
and
(3) How to support more general and expressive streaming models while
still providing correctness and performance guarantees?

In modern machines cache locality can have a significant impact on
performance. This research has the potential to make fundamental
contributions to both design and analysis techniques for steaming
schedulers that guarantee good cache performance to streaming applications.
This work will enable programmers to express a larger class of applications more
easily in the streaming model. While this research project is a primarily theoretical undertaking
aimed towards designing algorithms and proving asymptotic bounds on
their performance, the overall goal is to enable practical and
efficient concurrency platforms that can run high-performance,
high-throughput streaming computations on real parallel machines.
Therefore, one of the primary objectives will be to design low overhead
and simple algorithms that can be implemented in production-level
streaming concurrency platforms.